WORKSHOP: NSF Workshop on Large Scientific and Engineering Data Visualization to be held May 21-23, 1999 in Salt Lake City, Utah

Leading-edge scientific and engineering computations and experiments can
generate data of unprecedented size and complexity. Terabyte data sets are
not uncommon now, and are being generated with increasing frequency. To
accelerate the development of data management and visualization techniques
for handling large datasets, closer cooperation between individual
researchers from different disciplines is needed. The objective of this
workshop is to gather researchers from diverse areas to produce a report
identifying the challenges of managing large data sets for data analysis
and visualizations, surveying currently available technology, and laying
out directions for future research.